Photochemistry of Conjugated Polymer/Lanthanide Blends

The Advanced Materials Program in the Chemistry Division supports this award to University of California Santa Barbara. The focus of the research is the synthesis and characterization of conjugated polymer-lanthanide blends and to determine mechanisms for electronic couplings and charge transfer reactions in these systems. Under this award, ultra fast femto-second and time-resolved spectroscopic studies will be carried out by Vojislav Srdanov and Guillermo Bazan to determine the optical and electronic coupling between the conjugated polymers and lanthanides such as terbium neodymium and erbium in the prepared blends. Specifically, photoluminescence and electroluminescence properties of rare earth centered conjugated polymers will be studied with this award. Orbital energy levels of the polymer, the singlet and triplet levels of the ligand, and those of the lanthanides will be matched for the efficient combination of the polymer and the lanthanide. An understanding of the mechanism for the energy transfer reactions in conjugated polymers doped with different lanthanides may provide impetus for the development of monochromatic light-emitting diodes, flat panel displays and other related electro-optic devices.

An understanding of the mechanism for the charge transfer reactions in conjugated polymers with lanthanide rare-earth metals may provide impetus for the development of monochromatic light-emitting diodes, flat-panel display and other related electo-optic devices. The educational plan will integrate interdisciplinary research and education in the area of macromolecular chemistry and photochemistry.